NSF Young Investigator: Dynamics and Mechanistic Studies of Proton Transfer Reactions

9357408 Truong Dr. Thahn Truong is supported by an NSF Young Investigator Award from the Theoretical and Computational Chemistry Program to pursue theoretical research in the area of dynamics and mechanisms for proton transfer reactions in solution. Truong will perform studies in the following three areas: 1) dynamics and mechanistic studies of proton transfer in proteins; 2) dynamics and mechanistic studies of heterogeneous catalysis reactions; and 3) "direct dynamics" studies of chemical reactions in gas-phase, microsolvated states, and in solution. The primary methodologies to be used in these studies include molecular orbital theory and molecular dynamics. Variational transition state theory calculations will employ semiclassical treatment for tunneling and quantal treatment for vibrations directly from semiempirical molecular orbital methods. %%% Proton transfer is ubiquitous and important in virtually all biological systems. In spite of much experimental evidence of significant quantum effects occuring in such processes, not a lot is known about the detailed dynamics of this fundamental process at the molecular level. Truong's research will explore the process of proton transfer in simple model systems in order to better elucidate the mechanism for biological systems such as DNA base pairs. ***